Ship Operations

Bermuda Biological Station will operate the R/V WEATHERBIRD II during 1990 as a general oceanographic vessel in support of NSF-funded research projects. The R/V WEATHERBIRD II is a 115' general research vessel that was originally converted in 1989 and is owned by the Bermuda Biological Station. Additional conversion work on the vessel will be conducted in phases during 1990 and 1991. The ship operates primarily in the vicinity of Bermuda. This vessel is part of a fleet used by the National Science Foundation to support oceanographic research projects. Most oceanographic research projects require highly specialized equipment and extensive support from a ship's crew members. An increasing number of research projects require equipment that must be permanently installed on a ship and for which the ship must be specifically designed. Such equipment also requires highly trained crew members for maintenance and operation. These vessels do not operate in the same manner as general cargo or fishing vessels, and therefore, NSF supports the operation of a variety of vessels specifically dedicated to oceanographic research. These vessels are operated by universities and research institutions around the country.